SGER: Task-Specific Retina

9615688 Raviv Supports initial exploration of an analog VLSI design for a novel, reduced-complexity task specific visual retina. The proposed retina generates specific quantitative information about imminent threat of collision in real time, which can be used as a powerful sensory feedback signal in closed-loop control for autonomous navigation (e.g., collision avoidance) as well as other tasks. When dealing with a moving camera-based autonomous navigation system, a huge amount of rapidly varying visual data is captured. Processing all these data in real time is a difficult task. There is a need to reduce the rapidly varying video-rate images to a few signals that are relevant to the tasks at hand. The PI's ongoing research has resulted in identification of several relevant visual motion cues, one of which is the Visual Threat Cue (VTC). This cue can be viewed as a mechanism to reduce the vast rapidly changing visual data to one slowly-changing signal. The proposed retina extracts the VTC in a singlestage parallel operation. It employs raw gray level data directly to extract the VTC, i.e., without the need for pre processing such as edge detection, segmentation, feature tracking, optical flow, etc. Potential applications include realtime autonomous navigation, aid to visually-impaired people, behavior-based robotics, and multi-eye agents.